Stochastic Variational Problems: Approximation and Modelization Issues

This research proposal is centered around approximation issues in
stochastic programming, in particular as they arise in two quite
challenging problems: groundwater remediation and equilibria problems in
an uncertain environment. The first of these requires dealing with
stochastic programs where the `recourse' is determined by a system of
partial differential equations. The `stochastic' equilibrium problem
adds a new level of difficulty, rather than just optimizing one must
find a mechanism to determine a price system under which the optimization
takes place. Such equilibria have been derived by relying on fixed point
theorems. Finally, because it's only possible to solve discretized
versions of stochastic optimization problems, it's of paramount
importance to investigate thoroughly approximation issues. Not only the
question of approximating the stochastic process that describes the
uncertainty but also how to improve the construction of this process
from the available data and to analyze the effect this will have on
the solution of the stochastic program.

The field of stochastic programming provides mathematical tools for
solving and analyzing models for decision making under uncertainty.
This project will be concerned with two significant and difficult
applications and with approximation issues:
-- A problem in groundwater remediation which was selected because
it requires both theoretical and computational developments. It's a
stochastic optimization problem where the state of the system is
obtained by solving a partial differential equation whose coefficients
are rapidly oscillating (heterogeneous media) and stochastic (uncertainty
about the media composition). The possibility of deriving an
homogenized version of this problem will also be investigated.
-- Walras equilibrium problem in an uncertain environment. This
problem is selected because it adds a dimension to stochastic
optimization in that one must also find price systems (setting up an
`equilibrium') under which this stochastic optimization must take place.
-- Approximation issues in stochastic programming. The question of
having a reliable estimate for the parameters of a dynamic stochastic
programming problem is raised. It is expected that a more comprehensive,
approach which makes use of all the information available, rather than
just the collected data will result in more reliable solutions for
stochastic programming problems.